Spatial Heterogeneity, Nonlocal Interactions and Time Delay in Epidemiological and Biological Spread

Ruan

The investigator studies the effect of spatial heterogeneity,
nonlocal interactions and time delay on the spatiotemporal
dynamics of epidemiological and ecological models. Three
particular examples are considered. The first is the generalized
Ross-Macdonald vector-host (malaria) models. The focus here is
on the existence of traveling waves in a vector disease model
described by diffusive integrodifferential equations with delay
and the effects of nonlocal interaction and time delay on the
epidemic waves and spatiotemporal dynamics. The effects of
spatial heterogeneity and time delay on the establishment and
transmission of the disease are studied by considering a
multi-patch model. The second is nosocomial epidemic models with
antibiotic resistance and infection age. Persistence and
extinction of the infected population are considered. The impact
of control measures such as isolation of patients infected with
resistant strains, restricted use of antibiotics, and reduced or
extended hospital stays, are discussed in terms of the model
parameters. The third is the biological and physical
nutrient-phytoplankton-zooplankton (NPZ) models. The
investigator studies spatiotemporal dynamics such as traveling
waves and chaotic mixing in the advective-diffusive NPZ models.

One of the most important environmental effects of globalization
is the dramatic increase in the introduction of exotic species,
including pathogens that may cause disease in humans, into new
regions. Such introductions can lead to biological invasions,
which in turn can threaten public health or affect ecosystem
structure. Examples include nonindigenous vectors that arrive,
establish, and spread in new areas and foment epidemics of human
diseases such as malaria, yellow fever, typhus, plague, and West
Nile virus. The investigator studies the spatial transmission of
certain vector-host diseases such as malaria and hopes that the
study can help to understand the establishment and spread of
other vector-borne diseases such as West Nile. He also studies
nosocomial epidemics with antibiotic resistance, aiming to
provide some control measures to combat such epidemics inside
hospitals. Finally, he examines the spatiotemporal dynamics of
plankton populations; this may lead to a better understanding of
global issues such as the depletion of ocean fish markets and the
greenhouse effect.